Interaction of the Goldfish Kainate Receptor with G Proteins in a Novel Model System

Oswald 9630777 Information in the brain is transmitted from one nerve cell to another by the release of a messenger molecule from the presynaptic cell which diffuses across the small space and interacts with a protein imbedded in the membrane of the postsynaptic cell called a receptor. Glutamate is the most prevalent excitatory neurotransmitter in the brain. The receptors for glutamate bind the amino acid, and respond by opening a channel between the outside of the cell and the inside of the cell allowing positively charged ions to flow across the cell membrane. Dr. Oswald is characterizing the topology of the glutamate receptor and has found the receptors to be similar in structure to bacterial proteins which have similar functions. The evolution of these molecules could help understand the mechanisms cells use to communicate. Studies are continuing to understand the mechanisms of glutamate binding to this receptor. These investigations will yield novel data on the structure and function of glutamate receptors in the brain and are important to understand adaptive mechanisms that have been borrowed from simple organisms for use in higher species during evolution. In addition, these studies may provide the first information about the molecular basis for learning and memory.